SBIR Phase I: Proteome Epitope Tags-Based Antibody Arrays for High-Throughput, Proteome-Wide Kinase Pathway Profiling

This Small Business Innovation Research (SBIR) Phase I project proposes to develop antibody arrays for studying kinase proteins based on the Protein Epitope Tags (PETS) method. This method relies on a computational process to mine the human genomic sequence to find good tags using a nearest-neighbor approach to filter out similar tags.

The commercial application of this project will be to make available effective antibody arrays as protein analysis tools for use in biomedical research and diagnostics.